Nasca Population Nucleation and Residential Agglutination in the Late Intermediate Period

The movement of population from rural towns to large centers remains one of
the most common but striking trends in human settlement. Researchers have
had little trouble in formulating explanations for this population
nucleation in market societies. However, these market-based approaches
have proven of little utility in societies - - or segments of societies - -
not dominated by market institutions. Because these societies were
generally non-literate and left no written records, archaeology provides
the only means to study long-term demographic change in such societies.

Viviana Siveroni will investigate chronological settlement trends in a
non-market population of the prehispanic Andes in the Nasca Valley, Peru.
Recent archaeological research has revealed massive regional changes
between AD 550 and AD 950, including: (a) the abandonment of many rural
homesteads and settlements as people flocked to large centers; (b) the end
of a long-standing ideology and ceremonial practice (including that
associated with the famous Nasca "lines"); and (c) an increase in social
stratification even as political decentralization grew. Nothing is known
of the changes at the household or community levels that accompanied these
broad regional changes. Siveroni will investigate potential changes by
excavating and comparing residential areas from a rural village (Las
Carretas) dating to early in this period to those at a center dating to
late in the period (Huayuri). Her work will explore community religious
practices, social structure, and political organization, while focusing on
potential shifts in economic activities. One critical goal of the research
is to explore the relationship dynamics between population nucleation and
reorganization of the household economy.

The importance of this project is that Siveroni will assess several
theoretical models in which household and communal level processes are
themselves the cause of regional population nucleation. This research thus
represents an attempt to link levels of analysis in a new way. Processes
such as population nucleation must be observed and studied at the regional
level, but their causes may reside at the sub-regional level, even the
level of the household or individual actor. Documenting human motivations
and social processes in a world not governed by rational market forces is
an important contribution of this kind of explanatory archaeology; placing
this work squarely in current debates in locational geography and political
science.